Studies in Theoretical Physics

Thoretical research will be conducted in the general areas of nonlinear science and condensed matter physics. Specific topics include pattern formation in hydrodynamic systems, the scaling properties of dynamical systems, and the theory of well-developed turbulence. Specific applications include such topics as the mathematical structure of the equations describing the swirling behavior of fluids, the motion of two-fluid boundaries, and the structure of avalanches. %%% Theoretical research will be carried out on nonlinear science and its application to problems of interest to condensed matter physics. Research on nonlinear science is developing rapidly and its implications on condensed matter systems are only just being probed.